Project SCORE

9355589 Austin Project SCORE (Science Concepts Organized Reinforced and Enhanced) is a program designed by teachers and university professionals to develop a long term interactive support system for teachers in Prince George's County, Maryland who teach life sciences. The premise of the project acknowledges the critical role of the teacher in science education and the responsibility of higher educational institutions in providing support for teachers. An interdisciplinary core of university science content teachers, government and private industry scientists and other educational professionals will introduce teachers to the latest scientific information in the life sciences via hands-on laboratory experiences and learning resources (kits, modules, etc.). Project SCORE consists of three summer science institutes for twenty-five new mentor teachers each year who will mentor teachers in schools in Prince George's County. The mentor teachers and mentorees will be given sustained support throughout the year by Howard University science content teachers and graduate students. Life science awareness workshops will also be conducted for parents and students.